ITR: Universal Discrete Denoising

ABSTRACT
0312839
Verdu, Sergio
Princeton U

In this proposal we describe an integrated research program on a new research area with a very rich
array of applications: the problem of .ltering or denoising of discrete sequences. This statistical
signal processing problem arises naturally in a wide range of applications spanning a variety of
information technology applications in .elds as varied as computer science, statistics, engineering,
astronomy, biology, and information theory.
Consider the problem of recovering a signal from a noisy version, which has been corrupted
by a known channel. The recovery can assume two major modes depending on the application:
noncausal, i.e. it starts once the entire signal is available;and causal, i.e. decisions must be made
immediately after each symbol is received.
The continuous case, where the input and output alphabets are the real line (or other Euclidean
spaces), has received immeasurable attention for over half a century, as witnessed by major contributions
to linear .ltering by Wiener, Kolmogorov and Kalman, and to nonlinear .ltering by
Donoho and Johnstone.